Dissertation Research: Ceramic Chronology in the James and Potomac River Valleys

Under the direction of Dr. Jeffrey Hantman, Mr. Michael Klein will conduct research for his doctoral dissertation. He will analyze ceramic materials collected from 43 Native American sites located in the James and Potomac Rivers region of Virginia and Maryland and will focus on the period between 500 - 1600 AD. The goal of the project is to develop a ceramic chronology - to understand how ceramics changed in form over time - and the selected sample which derives entirely from radiocarbon dated sites will make this possible. On this basis, an archaeologist will then be able to take pottery from undated sites in the region and determine its age through comparison to the controlled sequence. Since most pottery in the Chesapeake region is neither decorated nor painted, Mr. Klein will focus on attributes such as sherd thickness and the tempering material used. Ceramics which form the basis of this research are housed in East Coast museums and Mr. Klein will make a series of trips to visit them. The Chesapeake region is unusual because of the richness of the resources available to prehistoric peoples and relatively little is known about how technologically simple societies developed in such environments. Archaeological evidence indicates that during the 1100 year span which Mr. Klein's study includes, societies were transformed from small scale hunting and gathering groups to large centralized chiefdoms which relied on agriculture. Before one can understand the process which underlies this transformation, it is first necessary to place archaeological sites in time and Mr. Klein's research will help to achieve this goal. This research is important for several reasons. It will increase our understanding of prehistoric Native Americans and the processes which led to the emergence of cultural complexity. It will provide a tool useful to many archaeologists and will assist in the training of an extremely promising young scientist.